Sicangu Rural Systemic Initiative

Sinte Gleska University will conduct Development-level activities with local BIA and public schools. SGU has a history of involvement with NSF - and other funded educational improvements projects, including the Tribal College RSI. The development period of twelve months will focus on systems approach to change, data collection, and addressing the achievement gap. It will also focus on building collaborative partnerships and community involvement.